Finite Element Approximation of Problems in Solid Mechanics

Dear Jong-Shi:

I was very pleased to receive your email saying that you plan to recommend
funding of my NSF proposal as a 36 month standard award of $150,710.

As you requested, here is an abstract of the project. Please let me know
if this is acceptable.

Regards,
Rick Falk

Abstract: Finite Element Approximation of Problems in Solid Mechanics

The finite element approximation of mathematical models of thin plates and
shells is studied. For the Reissner-Mindlin plate model, there are many
proven "locking-free" methods (i.e., no accuracy loss for smaller thickness)
using triangular and rectangular elements. It is proposed to analyze
quadrilateral elements for this problem and study important but unresolved
issues about these elements in more general contexts. In addition to the
shear locking which causes problems in the approximation of plate models,
shells also suffer from the problem of membrane locking. The goal is to
improve on the shell elements so far proposed and provide a rigorous analysis
of convergence. Variational methods used previously for the derivation and
analysis of plate models will be extended to the derivation and analysis of
shell models. Discontinuous Galerkin finite element methods are promising
candidates for a robust approximation method for both convection-dominated and
diffusion-dominated convection-diffusion problems. Further analysis is
proposed to demonstrate their effectiveness more conclusively. Computational
and analytical techniques are proposed to understand the predictions of 2-D
mathematical models concerned with stress driven instability, expanding on
previous grant work done on a simpler 1-D model.

This proposal is concerned with the use of mathematical models to study
several problems in solid mechanics. The use of mathematical models offers a
cost-effective way to make quantitative predictions about how mechanical
systems will change when external forces are applied and serves as an
alternative to the use of costly or difficult experiments. Typically, when
realistic mathematical models are formulated, they are in terms of equations
whose solutions, which represent physical quantities of interest to engineers
and scientists, are not able to be determined analytically, i.e., in a simple
form one can easily write down. However, by employing numerical methods, good
approximations to the physical quantities which are described by the
mathematical models may still be found. Typically, high performance computing
is needed to do the large number of calculations involved. This project is
concerned with the design and analysis of numerical approximation schemes for
a number of important mathematical models used in mechanics. These include
models of elastic plates and shells (used for example to design the roof of a
building to avoid collapse) and models of nano-scale solid crystals (which
can be used to study instabilities in certain materials).